Asian Pacific Conference on Computational Mechanics Hong Kong, 11-13, December 1991

This proposal request travel support for the PI's to present invited plenary lectures in the Asian Pacific Conference on Computational Mechanics, Computational methods for highly nonlinear problems are important in 9tructural systems.